Effects of Pressure in Turbulent Reacting Flows

Experiments and analysis are used in an investigation of some troublesome correlations between both velocity and species mass fraction against pressure gradient which occur in second order closure methods for turbulent reacting flows. Simultaneous two-point measurements are carried out for pressure, velocity, and density (and, equivalently, mass fraction and temperatures). A premixed turbulent flame facility is used for these measurements. The techniques of laser velocimetry and continuous Rayleigh molecular scattering are used along with dynamic Pitot barometry. Analysis consists of development of a new theory for the correlations in question and comparison with experiment. In addition, past models, heavily weighted by questionable incompressibility considerations, are compared with the experimental results.